Award For Creativity in Engineering for Kimberlee Wallace

Secondary metabolites are compounds which are produced by the cell but are not required for the growth of the cell. Examples of commercially important secondary metabolites include the antibiotics, pigments, and fragrances. Due to the limited knowledge of the complex pathways from which these compounds are produced, traditional methods for improving productivity have involved empirical techniques. In early years, these empirical strategies resulted in exponential productivity increases; however, currently these techniques are less successful, resulting in annual productivity increases of only a few percent. To obtain greater productivity improvements, rational techniques must be developed based upon knowledge of intracellular rate limitations to biosynthesis. %%% The purpose of this study is to examine the intracellular environment and determine the rate limitation to secondary metabolite production. The investigator proposes to examine regulation at three levels. First, levels of a key pathway enzyme will be quantified to determine if enzyme availability is a limitation to biosynthesis. Second, precursor supplies will be examined to determine if the flux of metabolites through the pathway limits production. Third, the effect of reaction endproducts on biosynthesis will be examined to determine if intracellular levels inhibit production.